U.S.-Australia Cooperative Science Research in Quantum Optics

This award will support collaborative research between Dr. M.G. Raymer of the University of Oregon and Dr. P.D. Drummond of Queensland University. The co-principal investigators are Dr. J.H. Eberly of the University of Rochester and Dr. K. Baldwin of the Australian National University. Several other researchers at these four Universities will also be involved. The areas to be investigated are important areas in modern quantum optics: nonclassical states of light; cavity QED; quantum noise in nonlinear optics; novel lasers; short-pulse and intense-field effects in laser-atom interactions and atomic photo-ionization. The project represents excellent coupling between experimental and theoretical physics, and the involvement of two institutions in each country will allow a great amount of cross-fertilization of ideas. The potential of scientific advances in quantum optics and laser physics are excellent. Laser gyroscopes, laser radars and range finders, optical communication systems, information processing and switching systems are some examples of areas of application.